Mathematical Sciences: Models for the Dynamics of InfectiousDiseases and Social Interactions with Applications to AIDS Epidemiology

8906580 Castillo-Chavez This project has two objectives. The first is to identify mechanisms that may be crucial in determining the rate of spread of infectious diseases and to make initial evaluations of the relative value of possible intervention strategies. The emphasis will be on the dynamics of HIV (Human Immuno-Deficiency Virus, the etiological agent for AIDS). The second objective is to create the basis for a solid long-term research program in mathematical epidemiology at the population level, on social dynamics, and on their connections to the field of theoretical population biology. This project's principal goal is to begin a systematic study of the dynamics of social interactions and their role in the dynamics of sexually-transmitted and communicable diseases. Castillo-Chavez will use a phenomenological framework to describe human mixing patterns, and deterministic mathematical models (involving single or interacting populations) will be developed to determine the role of social mixing, variable infectivity, long periods of infectiousness and, co-factors in the dynamics of HIV. Secondary goals include upgrading of the mathematical methodology in the areas of mathematical epidemiology and population dynamics by systematically integrating different types of social mixing and analyzing their effect on the transmission of other infectious diseases.